Acquisition of Enhanced Instrumentation for Testing and Characterization of Polymeric Systems

0072423
Vinogradov
The project concerns acquisition of enhanced instrumentation for experimental studies of polymeric systems, including bulk polymers, polymer matrix composites, thin films, foams, gels, and pastes. The set of three complementary instruments, manufactured by the TA Instruments, Inc., comprises:
Dynamic Mechanical Analyzer DMA 2980
Rheometer AR 1000N
Dielectric Analyzer DEA 2970.
These instruments provide unparalleled experimental capabilities in terms of high precision measurements over a broad range of loading and temperature conditions. The instruments will enhance the ongoing fundamental research at Montana State University in the area of advanced materials. Integration of this instrumentation into course curricula will enhance student learning and will provide exciting opportunities for graduate and undergraduate research. In addition, this instrumentation will serve as a catalyst for interdisciplinary collaborative research initiatives between Montana State University, other universities, government laboratories and private sector.
***